Planetary Scale Geoelectric Measurements Using Abandoned Submarine Cables

9505932 Chave The PI will continue to use 6 unpowered submarine telephone Pacific cables and add 3 new ones to study the deep electrical structure of the earth, improve our understanding of the ocean's response to wind forcing, space physics, and the dynamo mechanism in the earth's core, as well as investigate the mid-mantle electrical structure of the Pacific basin. ***